Molecular Interactions Between Angiotensin and NMDA Receptors

Angiotensin is a small peptide known for its role in regulating blood pressure, drinking behavior, neuroendocrine function, and tissue growth, which it accomplishes, at least in part, by activating specific Angiotensin receptors that are coupled to unique cell signaling pathways and gene expression patterns. Recently, Dr. Weyhenmeyer and others have shown that angiotensin can regulate the survival and/or death of selected neurons, and as such may have important implications in brain development, aging, and function. Indeed, these preliminary studies suggest that angiotensin may influence neuronal cell death by altering the expression of death and survival genes that are regulated by the N-methyl-D-aspartate (NMDA) (glutamate) receptor. The proposed studies will extend Dr. Weyhenmeyer preliminary findings by identifying and characterizing the molecular mechanisms that underlie angiotensin's ability to modulate the NMDA receptor-induced cell death programs. These studies will specifically focus on identifying points of convergence between the angiotensin and NMDA receptor signaling pathways that affect downstream gene expression (for both known and novel death and survival genes). The proposed studies have wide ranging implications regarding our understanding of the programmed cell death that is not only part of normal brain development and function, but also appears to be a significant contributor to the pathology in degenerative disorder (e.g., stroke, dementia) of the aging nervous system.